SGER: Research of an Image Acquisition and Processing System for Three Dimensional Spatial Analysis of Vegetation

This project takes advantage of new developments in photography and image analysis software to advance field studies in environmental science. The dynamics of ecological processes as well as impacts from disturbance often are measured by changes in vegetation. Traditional methods of vegetation analysis are labor intensive, slow, and as a result, they often are confined to small-scale measurements. Many current research topics (i.e. climate change) require analysis over very large areas, and although remote sensing from space is providing unprecedented information, validation of satellite imagery with large-scale vegetation analysis is lacking. A new, ground-based methodology has been developed by an interdisciplinary group at the University of New Mexico that is significantly increasing the ability of scientists to study environmental dynamics across a range of scales and allow integration with reflectance measurements from satellite instruments. The new technology requires image analysis algorithm research and development and the integration of new image acquisition hardware. The resulting system will provide near ground level acquisition of stereo images and detailed analysis of three dimensional information on a computer workstation. Three dimensional information from reflectance imagery is currently not available from any source, yet this information can lead to improved species identification and quantification of volumes (biomass) instead of just surface areas. It represents a major advance in image analysis technology for ecological studies. A highly qualified team of investigators will address the problem. Institutional facilities for image analysis and remote sensing are excellent. The new research is further strengthened by association with the Long-Term Ecological Research project centered on the Sevilleta National Wildlife Refuge.